Adaptive Critic Models of Skillful Coping

Adaptive critic methods, and they alone in the current neural-network literature, hold the potential of providing neural nets that to some extent mimic a very important aspect of intelligence - the ability to learn about some part of the world through observation and, though trial and error, to discover how to successfully cope with that world. With several networks interacting with each other they come somewhat closer to brainlike activities than do most other models. There are risks, however, in this approach, as there are heuristic aspects of the formulas to be implemented and it is impossible to rigorously analyze the performance of these heuristic due to the massive parallel and nonlinear nature of the networks. This research will involve computational experiments with various problems that are easily (either analytically or computationally) solvable using conventional dynamic programming to evaluate the potential, and problems, of adaptive critic methods.